DISSERTATION RESEARCH: Systematics, phylogenetics and the evolution of asexuality in the fungus-gardening ant genus Mycocepurus

SYSTEMATICS, PHYLOGENETICS AND THE EVOLUTION OF ASEXUALITY IN
THE FUNGUS-GARDENING ANT GENUS MYCOCEPURUS

The fungus-gardening ant Mycocepurus smithii reproduces exclusively via unfertilized eggs. Strict asexual reproduction makes M. smithii almost unique among insects. Studying M. smithii contributes to our understanding of why sexuality is so common among animals, and why asexuality is rare. The proposed research will test theoretical predictions of obligate and long-term asexuality in an evolutionary context. First, a modern taxonomic revision of the genus will identify existing species and describe new species. Second, a molecular phylogenetic analysis will infer the evolutionary transition from sexuality to asexuality and identify the sexual sister species of M. smithii. Third, M. smithii will be tested for the presence (or absence) of genetic signatures indicative of obligate, long-term asexuality.

The presence of sexual reproduction among most animals is a longstanding puzzle in evolutionary biology. If asexual organisms are able to persist over evolutionary time, they may have evolved a different solution insuring the same benefits of sexuality with two sexes. The proposed research will foster the exchange of information and technology through collaboration with scientists in Latin America. Several undergraduate research assistants will be trained in molecular genetic techniques. Scientific progress will be presented in public outreach programs and scientific meetings. In addition, a taxonomy & phylogeny workshop will be held at the partner Institute in Rio Claro, Brazil.